Collaborative Research: Spatially-resolved drivers of star formation and AGN feedback at the kiloparsec scale

This project uses the KILOGAS survey to investigate how galaxies evolve by examining the relationships between molecular gas, star formation, and black hole activity. KILOGAS is one of the largest surveys of nearby galaxies conducted with the Atacama Large Millimeter Array (ALMA), one of the world's most powerful radio telescope observatories. Located high in Chile's Atacama Desert at an altitude of about 5,000 meters (16,400 feet), ALMA is funded through an international partnership that includes the National Science Foundation as a major partner. By analyzing 500 galaxies, the researchers aim to better understand the processes that drive or suppress star formation and to improve the physical models used in cosmological simulations of galaxy evolution. The results will help test fundamental theories of star formation, explain key galaxy scaling relations, and provide benchmarks for creating more realistic galaxy simulations. The project also includes STEM outreach initiatives that engage middle and high school students in Baltimore with authentic astronomical data while providing graduate students with opportunities to develop their teaching skills.

This project will use the rich KILOGAS dataset to 1) map the recent star-formation histories from full spectral fitting, and compare them to the current interstellar medium properties to understand the coupling of recent star-formation to the availability of gas; 2) derive black hole accretion luminosity histories by using extended emission line regions to constrain the integrated effect of any feedback processes; 3) investigate the causes of star-formation efficiency variation in galaxies and test fundamental star formation laws that drive this range of behavior. This work will be used to benchmark the ability for simulations to create realistic galaxies, test star formation laws, and to understand the origin of fundamental galaxy scaling relations. This project also includes activities to broaden participation in science. One initiative will expand an outreach program in Baltimore high schools where college enrollment rates are well below the state average, with a particular focus on engaging students from communities that have low participation in the STEM workforce.